Actomyosin in a Basal Body-Associated Fibrillar Complex

9631943 Gavin In previous work under NSF support, this laboratory was the first to identify a myosin gene from the ciliated protozoan, Tetrahymena. In this short-term continuation project, the cloning and characterization of the gene, termed TETMYO, will be continued and a construct will be prepared for a gene replacement experiment. ***